EIA: Tomographic Imaging from Incomplete Data

This is an Engineering Initiation Award proposal the objective of which is to investigate and implement an accurate and computationally efficient noniterative method of image reconstruction from incomplete projection data in tomographic imaging systems. The proposed technique exploits a functional property of the object projections in conjunction with a priori information available about the test object to restore the unknown data. In most cases, this approach guarantees the stability of the solution. It is intended to address the factors that may cause the instability of the solution in practice. Various interpolation techniques for the improvement of the solution will be assessed, and noniterative schemes to surmount the instability problems will be explored.